Acquisition of a 9.4 Tesla Magnet for Solid State NMR

Acquisition of a wide bore 9.4 Tesla magnet for the assembly of a solid state NMR spectrometer is proposed. This research is directed toward the structural and dynamic characterization of protein complexes (collagen), protein lipid complexes (Gramicidin A in a lipid bilayer) and DNA liquid crystalline phases. Further use of the instrument will be made by individuals in a wide range of disciplines as time permits. Solid state NMR is beginning to play a major role in biophysics, especially in the realm of dynamics. The other approaches to dynamic characterizations do not yield the same sort of detail that is possible with solid state NMR. It is possible from specific site labeled biomolecules to determine a model for molecular motions with atomic resolution. This model includes a description of the axis about which the motion is occurring, the type of motion, whether it be diffusional or discontinuous, the amplitude of the motion and finally the frequency of the motion. With such characterizations of the dynamics the potential for obtaining correlations between dynamics and function is very high. Many of the specific experiments described herein would not be possible on the present relatively low field (4.7 Tesla) solid state NMR instrumentation in the FSU facility, not only because of the low field but also because of the severely limited time available on it. A detailed justification for a high field (9.4 Tesla) instrument is given, based on improved sensitivity (Boltzman distribution), improved resolution (by minimizing field dependent 14 N line broadening effects on the 13 C spectra), observation of low gyromagnetic ratio nuclei, reduced acoustic ringing (for 2 H spectra), and observation of quadrupolar nuclei with nonintegral spin.